The Extension of Moire Interferometry into the Ultra-High Sensitivity Domain

The objective of the proposed research is to increase the sensitivity of the Moire Interferometric experimental technique. The research is to evaluate three two step processes which will give the increased sensitivity.